PBONE-SEEGG Joint Meeting, Virginia Tech., May 17-19, 1990.

A joint meeting of the Population Biologists of the Northeast (PBONE) and the Southeastern Ecological Genetics Group (SEEGG) will be held at Virginia Tech on May 17/19, 1990. Formal sessions will consist of three plenary addresses by nationally known speakers from outside the PBONE-SEEGG area, 24 short talks by participants, 36 talks by workshop participants, and poster sessions. A special feature of these meetings are the invitations that have been sent to 200 or more small colleges in a 5-state area (NC-TN-KY-VA-WVA) urging that their biology professors and most promising undergraduate students (especially women and members of minority group) attend. Special field trips and other exercises planned for these invited guests; more importantly, however, is the opportunity these meetings will give these young persons for observing how their peers from larger institutions comport themselves and for these students to make contacts that may facilitate their acceptance into graduate programs.